Travel Support for U.S. Participants in Workshop on Glaciers, Ice Sheets, and Sea Level; Fjaerland, Norway; June 21-22, 1996

Abstract ATM-9612799 Bentley, Charles R. University of Wisconsin, Madison Title: Support for U.S. Participants in SCAR/IASC/PAGES Workshop on Glaciers, Ice Sheets, and Sea Level, June 21-22, 1996 in Fjaerland, Norway The ice bodies of the world contain sufficient water to raise world-wide sea level by more than 70m if melted completely. Glaciers and ice sheets might be a major source of water for the present-day rise in sea level, but the uncertainty is large. All glacial ice on the Earth must be considered in evaluating the contribution of changing ice masses to changing sea level. Furthermore, it is necessary to consider the history of past ice-sheet changes in order to interpret the present changes and predict those of the future. To evaluate all these factors in sea- level changes and to point the way towards research programs to evaluate, a Workshop will be held in Norway on the global interactions between glaciers, ice sheets, and sea level. This award will make possible the participation by U.S. invitees in the Workshop.